Undergraduate Computational Science Laboratory: Curriculum Development Project

9352362 Martin The enormous progress in computational technology has generated a new methodology, computational science, for learning and advancing the traditional sciences such as physics and chemistry. We are initiating fundamental change in undergraduate science education by providing a model for computational-science laboratory instruction in physics and chemistry. We are setting up a seed laboratory devoted to computational science and developing a curriculum for computational degree options in undergraduate physics and chemistry. The faculty involved are developing the necessary courses and course materials and the computer hardware to implement the courses has been obtained. The project personnel consist of interdisciplinary teams of faculty with expertise in computational physics and chemistry education and research, and computer science. We anticipate that results of the project will be transferable to the national scene in science education. ***